Design Support for State-Based Distributed Object Software

Proposal Number: 9988168
Shatz, Sol, M.
University of Illinois at Chicago
Design Support for State-Based Distributed Object Software

Computer system applications are rapidly becoming
more decentralized and concurrent, especially for
important environments like military command and control,
commercial telecommunications, and evolving Internet
applications. Complexity in specification, design, and analysis
dramatically increases in software architectures defined
by distributed components interacting via non-deterministic
communication patterns. One of the most significant research
problems is achieving a balance between general theoretical
concepts and specific practical techniques. This research
investigates a domain-specific design technique for
distributed-object software systems. The approach is based on
applying and adapting Petri nets, an existing graph model
oriented toward concurrent systems. The specific objectives
are to solidify the theoretical foundations for a
state-based object design notation and investigate
capabilities for inheritance modeling within the design
framework. This research can lead to methods and notations that
support engineering-oriented design of complex distributed
software systems. This has the potential to improve the overall
quality and cost-effectiveness of development and maintenance
for a wide range of critical software applications.